Structure-Function Studies on Phytochrome

9604511 Lagarias The overall goal of these studies is to define the structural basis for photosensory and regulatory functions of the phytochrome photoreceptor. These investigations rely on the ability to express, assemble and purify recombinant phytochromes. Previous biochemical and genetic studies have delimited the phytochrome molecule into two major domains, a highly conserved photosensory domain at the molecule's N terminus and a C-terminal domain which plays a key role in the regulatory function of phytochrome. These two domains are the focus of these studies. Experiments outlined in Part 1 seek to identify specific amino acid residues in the photosensory domain of phytochrome that are important to chromophore-protein interactions. These studies will exploit the techniques of chemical cross-linking, site-directed and random mutagenesis, and resonance Raman spectroscopy. These studies also represent a prelude (and adjunct) to x-ray crystallographic analysis of phytochrome. Experiments outlined in Part II address the hypothesis that phytochrome functions as a light-regulated enzyme. The exciting discovery of phytochrome-related genes in cyanobacteria, which share structural motifs with higher plant phytochromes and the transmitter protein kinase family of prokaryotes within the regulatory domain region, has provided renewed impetus for testing this controversial theory. Experiments seek to establish whether phyto*-chrome is a light-regulated transmitter kinase and if so, to define the structural basis for its enzymatic activity. Parallel studies to test for biochemical and functional `cross-talk' between eukaryotic and prokaryotic phytochromes, also outlined in this section, will provide insight into the evolution of phytochrome structure and function. The ability to adjust to changes in their external light environment is essential to plant survival because, unlike animals, plants must have sunlight for photosynthesis and they lack the ability to move to a more optimum light environment. Plants therefore possess light-sensing molecules which enable them to adapt to suboptimal light conditions in their environment, one of which is called phytochrome. Among the many phenomena mediated by phytochrome include the induction of seed germination, rapid stem elongation in response to the shade of neighboring plants, regulation of the timing of flowering and growth towards light. Phytochrome is a protein that contains an attached pigment which is responsible for its ability to absorb visible light. Upon light absorption, phytochrome is converted to an active form which regulates the course of plant growth and development. This work seeks to dissect the anatomy of the phytochrome molecule and to characterize the structural features that enable it to convert a light signal into a chemical signal. A better understanding of the mechanism of phytochrome action should lead to novel approaches to improve plant growth and development.